Dynamics of Low Frequency Phenomena

The research into the dynamics of large-scale, low frequency phenomena of the coupled ocean-atmosphere system has an emphasis on planetary scale motions with time scales ranging from weeks to years. The four main areas of this research are: (I) The annual cycle of the low-latitude coupled ocean-atmosphere system: Mounting evidence indicates that the annual cycle plays an integral role in the longer period, interannual variability of the coupled ocean-atmosphere system. The annual cycle itself is a complicated combination of interactive, large amplitude asymmetric (monsoon) and symmetric (Walker) components. If these components are out-of-phase, as appears to be the case, then certain types of interaction may be expected. Therefore, the interactive structure of these components will be investigated with a combination of diagnostic and modeling techniques. (II) Equatorial Wave Propagation in Inhomogeneous Flows: Earlier studies indicate that equatorial transients are significantly modified by the latitudinal and longitudinal structure of the basic flow. Both the sign and latitudinal shear of the basic flow tend to determine the degree of equatorial trapping and lateral extension (emanation) of the transients while the longitudinal stretching deformation determines the degree to which transient modes are trapped longitudinally. This research will be expanded from the past studies by explicitly including the strong vertical shear found in the tropical atmosphere. This research will also take advantage of the more complete ECMWF 31-level global operational model now available. (III) Interhemispheric and Extratropical-tropical Interaction: Abundant evidence exists to show that extratropical modes influence the tropical regions or even extend to the other hemisphere through the equatorial westerly duct regions. Further theoretical studies in this area will use conservative potential vorticity on an isentropic surface (IPV) as a basic tool in an exhaustive diagnostic investigation of regional equatorial propagation. A pilot study appears to identify new phenomena and unexplained processes which may have considerable relevance in latitudinal interactions. (IV) Rapid Development of Ultra-long Equatorial Anomalies: Tropical Bursts and Surges: A common view of the tropics is that the large scale fields are weak and slowly varying and that only small scale convective disturbances have rapid development. However, a contrary view is suggested by new analyses which show that rapid development appears to occur on the largest scales, thousands of kilometers, especially in the warm pool regions of the tropical Indian and Pacific oceans. A combined diagnostic and modeling activity, aimed at understanding these tropical bursts and their role in the coupled ocean-atmosphere interactions, will be undertaken. Research in each of these four areas will proceed first with detailed diagnostic studies which will be used to pose hypotheses. Then the hypotheses will be tested by experimentation with a hierarchy of theoretical numerical models. This approach has proven to be very successful in past research. This research is important because it focuses on understanding the behavior of the coupled ocean-atmosphere system on time scales of weeks to years. This understanding is key to determining whether the coupled system is predictable on time scales of months to years, one of the specific scientific goals of the TOGA (Tropical Ocean Global Atmosphere) Program which is aimed at studying the prediction of climate phenomena.